A Graphics Workstation Laboratory for Upper-Level Undergraduate Engineering Education

The Engineering Department of Swarthmore College will create a laboratory facility to introduce workstation and computer graphics as integral parts of the engineering curriculum. This state-of-the-art graphics environment will support upper level courses in the fields of Civil, Mechanical, Electrical and Computer Engineering. Apollo workstations will be used with integrated graphics capability. This experience at the undergraduate level will help the students understand how engineering is done in practice.